RUI: Instrumentation for Studies of Optical Properties of Inert Gases

Professor Payne and his colleagues will establish an optical multiphoton spectroscopy laboratory at Georgia Southern University. This grant will fund the purchase of equipment to begin the laboratory. This research will involve undergraduates and is funded under the RUI (research at undergraduate institution) program of NSF.